Collaborative Research: Dynamics and Kinematics of North America-Juan de Fuca-Pacific Plate Interaction: Constraints from GPS Geodesy and Geophysical Modeling

9614365 Miller This collaborative project proposes installation of a GPS network in the Pacific Northwest to measure strain accumulation and earthquake hazard in the region that is associated with subduction of the Juan de Fuca plate. Geodetic monitoring, combined with geologic studies and geophysical modeling, should discriminate the relative importance of the many factors contributing to the deformation of this area. The PIs will employ a matrix of permanent and roving GPS receivers in a project that includes 1) site installation, 2) data acquisition, reduction and archiving, and 3) modeling of the kinematic results. This work will be done in collaboration with other agencies and governments (Canadian) operating under the auspices of the Pacific Northwest Geodetic Array (PANGA), of which the PIs are members. A data analysis facility developed at CWU will reduce and distribute on-line and CD ROM geodetic data products to the geophysical community. Finite-element modeling of the new constraints on Pacific Northwest deformation will allow the development of both kinematically consistent, two-dimensional estimates of the surface deformation, and three-dimensional models of the forces that drive that deformation. The integrated approach of field observations and modeling should provide an advancement of understanding of the kinematics and dynamics of the Pacific Northwest, and will provide important seismic monitoring of this seismically active region. ***